A New Methodology in Accelerated Testing of Prosthetic Heart Valves

9812752
Hwang
Substituting heart valve prostheses (HVP) are expected to function in human recipients for at least 10 years under normal physiological conditions. Categorized as Class III medical devices, USFDA requires that HVP must be tested in a pulse simulator for 600 million cycles before the pre-market approval (PMA) can be considered. HVP manufacturers have used accelerated testers of various designs to achieve this number of cycles on their products. At the accelerated rate, the sample valves are subjected to excessive force load, and the test results are often misleading.

The goal of this research is focussed on the development of a new testing methodology that consists of: (1) an accelerated testing system based on engineering similarity laws and (2) a stochastic model and analytical capabilities that can be applied to predict the cyclic failure of the HVP.